FASEB Summer Research Conference: Molecular Genetic Basis of Cell & Tissue Structure/Function to be held on August 4-9, 1996, at Copper Mountain, Colorado.

9602087 Fulton This is an award for partial support of a conference on Molecular and Genetic Basis of Cell and Tissue Structure and Function, to be held on August 4-9, 1996, at Copper Mountain, Colorado. The conference brings together scientists from a diverse variety of fields who have in common interests in the relationship between cellular structure and gene expression. ***